Monoclonal Antibody Facility

The monoclonal antibody technique enables the production of highly specific reagents using small amounts of heterogeneous material. The reagents can be used to purify molecules or cells of interest, localize antigens in the animal, and probe their functions. The Caltech Monoclonal Antibody Facility provides staff, equipment, and expertise to produce hybridomas for investigators in the Biology Division. The facility has been successful in producing monoclonal antibodies, and new discoveries and fundamental advances are likely to be forthcoming. This award will provide support to continue operation of the facility and to increase its productivity.